Algorithm Exploratorium: A Distributed Graphical Computing Environment

This is a proposal to create a modern, distributed, visually oriented computing environment to support undergraduate computer science instruction. The environment will encourage experimentation with algorithms and programs. Students exposed to algorithm animation techniques in the classroom will be able to use this software to explore the properties of algorithms on their own in the laboratory. Through such experimentation, students will discover properties of algorithms by themselves, leading to deeper understanding of the basic building blocks of all software. A suite of state-of-the-art graphical tools will assist the students in designing, analyzing, implementing, debugging, and testing complex programs. By using powerful analysis tools, students will be able to discover the structure of existing large programs. Other tools will assist them in developing complex programs better and faster and ensure that they are thoroughly tested. The skillful use of such tools leads to major increases in both software quality and programmer productivity. Hypertext-based tools with powerful searching capabilities will give instant access to documents in a large technical database, which includes on-line documentation, classnotes, and tutorials. The environment will consist of an array of networked UNIX workstations and servers supporting powerful graphical user interfaces, and appropriate software to facilitate the experimentation envisioned in this project. Integration of this environment into our curriculum will give our students a better understanding of fundamental principles and practical techniques available to produce quality software and better prepare them for the requirements of computer professionals in the 90s.